American Physical Society 2000 Meeting: Division of Particles and Fields (DPF2000); Columbus, OH; August 9-12, 2000

Gan is operating a national high-energy physics conference that the Division of Particle Physics holds once every two years. The cost of operating this Conference is shared between DoE and NSF. The proposal seeks support for graduate students and post docs who would otherwise cannot afford to attend.